Explorations in Algorithms

The study of algorithms has yielded numerous techniques that are both
interesting mathematically and broadly useful. This ranges from
linear programming to cryptography to geometry to approaches for
approximately solving optimization problems. The addition of a
statistical view of the world to the study of algorithms has also been
a compelling area of study. This project will study better algorithms
for linear programming as well as, explore and expand on recent work
in approximation algorithms, and will explore algorithms with a
statistical view of the world. Recent breakthrough work on
solving linear systems as well as developments in online optimization,
make the development of better algorithms for linear programming a
tantalizing possibility. This project will pursue this goal. A second
specific area is the study of approximation algorithms which has, in
recent years, been a primary focus of algorithms research. In
particular, problems such as finding sparse cuts, disjoint paths, and
the traveling salesman problem have been fertile ground for developing
new algorithmic techniques. The researcher has done some of this
work, and proposes to study this area further. Finally, this project
will go beyond the ``we know how to solve it'' case of linear
programming, and the ``we will do as well as we can'' notion of
approximation algorithms, to a ``how do we do on data generated by the
world'' view of algorithms. This latter view is especially
appropriate these days with the growing production of biological data;
This data is generated accordingly to scientifically validated
statistical models. Quite interesting work has been done in this
area, but the field is begging for more involvement from those trained
in algorithms.

The intellectual merit of this project lies in the further development
of mathematical techniques for algorithms, and the blending of
traditional ideas with ideas in statistics. The broader impacts lie
in the many applications of algorithms for the problems addressed in
this project. Application areas include network design, molecular biology, recommendation systems, and optimization. The researcher will introduce ideas from this project into graduate and undergraduate classes in algorithms as well.